REU: Dynamics and Evolution of Clonal Plant Populations

The purpose of this study is to determine the fundamental processes that control structure and regulate the size of clonal plant populations. To date there has been surprisingly little agreement among ecologists as to how any plant population is regulated. Dr. Silander has developed an approach that combines field experiments with mathematical models, based on observations of individual clone performance (i.e. size, growth rates, reproduction, etc.) and clone competition. These models will provide specific predictions of clone population composition and fluctuation which can be field tested. This protocol has been used to accurately predict the fluctuations and species composition of annual plant populations. The proposed study will provide the same for clonal populations. The experimental phase of the study will focus on clonal populations of white clover raised in the field with perennial ryegrass. Together these species form one of the dominant types of agricultural forage communities found throughout the temperate zone of the world. This system is thus of considerable economic importance. Competition among white clover clones and between clover and ryegrass will be examined. Furthermore the study will examine the effects of environmental variation (temporal and spatial) on clover population fluctuations. The study will provide an unprecedented understanding of the structure and composition of plant populations. It will allow prediction of the population consequences of variation in genetic diversity, environmental variation and grassland management regimes. Thus the study has significant application for agricultural systems as well as providing basic knowledge of the ecology and population biology of white clover.